Universal Program for Closure and Adjustment of Control Survey Nets

The proposal addresses a research program on the optimal method for producing, closing, and adjusting control survey nets. The project has two main goals. One is to investigate the feasibility of developing a distance measuring devive that corrects for systematic errors caused by humidity and air turbulence. The second goal is to investigate and implement a univeral closure algorithm that efficiently uses redundant data by properly applying weighing factors in proportion to ecpected errors.